USA-Bulgaria Cooperative Research in Computer Simulations of Polydisperse Systems

INT-9604831 Landau This U.S.-Bulgarian Cooperative Research award is on "Computer Simulations of Polydisperse Polymer Systems." The principal researchers are Dr. David P. Landau of the University of Georgia, and Dr. Andrey I. Milchev of the Institute of Physical Chemistry of the Bulgarian Academy of Sciences. The researchers will combine their expertise to perform large scale Monte Carlo simulations to investigate the static and dynamic behavior of polydisperse systems of a broad class of "soft" condensed matter systems generally known as "living polymers." They will place particular emphasis on understanding the behavior of model systems in confined geometries and under conditions of shear flow. This research in applied condensed matter physics fulfills the program objectives of bringing together leading experts in the U.S. and Bulgaria to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit. *** ??